U.S.-Hong Kong Cooperative Research: Radial Basis Function Based Meshless Methods with Applications to Groundwater Contaminant Modeling

0328186
Li

This is a cooperative project between Dr. Jichun Li, University of Nevada, Las Vegas, and Professor Yiu-Chung Hon, City University of Hong Kong, on radial basis function based meshless methods for numerical simulation with applications for groundwater modeling. The proposed research on meshless methods has useful applications for practical large scale numerical simulation such as groundwater contaminant modeling. The project will develop teaching materials for graduate education and training.